Acquisition of a 500-MHz NMR Spectrometer

With support from the Major Research Instrumentation (MRI) Acquisition Program, the Department of Chemistry and Chemical Biology at Indiana University-Purdue University at Indianapolis (IUPUI) will acquire a 500 MHz NMR spectrometer. The spectrometer will be used in various research investigations involving natural and non-natural products, advanced polymers for biomedical applications, electron transfer and spin-crossover reactions, protein tyrosine phosphatases, metallopeptides that bind to DNA, synthesis of peptidomimetics, stereoselective boron alkylation studies, structural characterization of sphingolipids, and biosynthetic pathways to polyacetylenes.

Nuclear Magnetic Resonance (NMR) Spectroscopy is the most widely used tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances and to provide information on the arrangement and connectivity of atoms in molecules. Dynamical information is obtained providing insight on the motions of molecules. This award will provide essential analytical capabilities to faculty and students at (IUPUI). Creation and implementation of a NMR certification program for student users is planned to enhance the educational value of the new instrument.